SODA Conference Student and Postdoc Travel Support

This award supports student and postdoctoral fellow attendance at the
SIAM-ACM Symposium on Discrete Algorithms (SODA), to take place during
January 5-8, 2020 in Salt Lake City, Utah. SODA is one of the few
major conferences with broad coverage of Theory of Computing and
Discrete Mathematics. SODA has a record of strongly encouraging
participation by students, for whom the conference serves as a valuable
educational experience, both for the technical content of the talks and
for the opportunities for networking that it provides. This award will
provide partial support to about 20 students/postdocs.